Vertical Cavity Photonic Integrated Circuits

The objective of the proposed research is to establish a revolutionary new class of vertical cavity photonic integrated circuits. The coupling between the elements of a 2-dimensional array will be achieved by using defect engineering within 2D photonic crystal lattices. Equally important, this research will provide a new context to extend the understanding of microcavity physics as well as the nano-fabrication techniques for novel optical materials. Therefore highly dense, high performance 2D optical circuits for optical processing applications or 2D optical interconnects (suitable for the chip level!) is a target of this esearch. However, this research may also have major impact on high-performance communication applications, such as for wavelength division multiplexing or high-capacity photonic integrated circut for the next generation of telecommunications.